Research Experiences for Undergraduates in Chemical Engineering Using the Colorado Bioprocessing Center

9820545
Colorado State University
Vincent G. Murphy

Biotechnology is a field that has grown rapidly in the past decade. As biotechnology products
are identified and their efficacy verified, there will be an increasing need for chemical engineers with
expertise in bioprocessing. Colorado has established the Colorado Bioprocessing Center (CBC) at
Colorado State University as a resource for both academic and industrial research and development.
The CBC has a full spectrum of bioprocess equipment at both bench and pilot scales for fermentation,
cell culture and product recovery research. A skilled group of faculty in the Department of Chemical
and Bioresource Engineering CBE) works closely with the CBC staff on both basic and applied
research projects. This proposal requests funds for renewing a REU site focused around the unique
research environment of the CBC. Students selected for participation in the program would first
participate in a series of lectures conducted by CBE faculty on the fundamentals of biochemical
engineering. This would be followed by hands-on experience with the process and analytical
equipment in the CBC and the development and execution of a focused research project with the
guidance and support of a CBE faculty advisor and the CBC staff Students would share their
experiences with fellow participants at weekly colloquia and a concluding symposium. The goal is to
expose the students to a variety of bioprocessing research opportunities at both the undergraduate and
graduate levels in preparation for a career in bioprocessing research and development. The initial three
years of the program were successful in providing research opportunities to minority students (two),
women (ten), and to eight students from smaller schools with limited research programs. Fourteen of
the 22 students representing 16 universities) who participated in the program are either in or committed
to attending graduate school or now work in research laboratories.